Modeling the Economic Impacts of Global Environmental Change

9321367 Nordhaus A better understanding of the impacts of global environmental changes and of the strategies to control them has emerged as a central concern of domestic and international economic policy over recent years. This research will continue work that will contribute to a better understanding of the underlying economic impacts and policies concerning global environmental problems. The investigators have already developed an aggregate, dynamic integrated climate and economic model to determine the efficient strategies for controlling green house gases. A major objective of this project is to disaggregate the model and extent it to encompass a multi-regional framework. This will enable the authors to investigate efficient green-house-gases control strategies at the regional level and to analyze economic losses arising from noncooperative behavior among regions. The second objective is to develop a better methodology for estimating the impact of global warming on U.S. agriculture using the results of general circulation climate models. ***